Program for Leadership in Earth Systems Education

The Program for Leadership in Earth Systems Education is a cooperative effort among national, regional and local leaders in earth science education. The project's national coordinating center will be at Ohio State University. Teacher teams, each including an upper elementary, a middle or junior high school and a senior high school teacher will be selected from each of the 50 states and prepared at one of two regional centers (an Eastern Center at Ohio State University and a Western Center at Northern Colorado University) each conducting three-week long summer workshops. During the four-years of the project, 64 teachers will be prepared with updated activities and information regarding Planet Earth. Teams will select exemplary instructional materials dealing broadly with planet Earth systems using as a guide a K-12 syllabus prepared by a national planning committee of teachers, science educators, and scientists and modified by the teams for appropriateness for their own locality. The syllabus will have been based on a framework of goals and concepts identified at a Conference of Educators and Geoscientists held in April, 1988, supplemented by plant Earth understandings obtained from an analysis of Project 2061, Phase I results. Participants may earn six-semester hours of graduate credit. Teams will identify a local school administrator and a local college liaison as resource agents. Both will be invited to attend a conference on the objectives of the program held during the last week of the teams' summer workshop. Together the three team members and the two liaisons will act as a mutual support group to provide a stimulus for improving curriculum and instruction regarding planet Earth systems and, since all teaching levels above the fourth grade are represented, provide an articulated approach in their schools, locales and states. Subsequent to the completion of their summer workshop, each team will conduct a minimum of two workshops in their state and locality using their syllabus and correlated teaching materials. Workshops on appropriate regional versions of the planet Earth syllabi and teaching materials will also be offered at each of the regional and national meetings of the NSTA. As a result, some 4000 teachers will have been directly assisted by the project over its life-span. Communication between all participants and staff, and the earth science education community at large, will be facilitated through networking consisting of a newsletter and an electronic Earth Systems Education Conference (using PSI- NET) both of which will be maintained by Ohio State University beyond the end of the project. Cost sharing in an amount of $158,870 equals 15% of the NSF award.